Engineering Research Equipment: Full Scale Component Testing and Digital Control System Upgrade

This project provides support for experimental equipment upgrading for structural control research at University of Notre Dame. The new equipment to be purchased include a large capacity hydraulic actuator for full-scale component testing and new control hardware/software which will be dedicated to interdisciplinary research in engineering. The equipment will be used to support current and future research efforts in active/hybrid, semi-active and passive control of structures for wind and earthquake hazard mitigation. The large capacity actuator will allow for testing of full-scale control devices to demonstrate their scalability.. Such component testing is essential to the acceptance of new control technology by the profession. In addition, new digital controllers are requested in support of the model testing on Notre Dame's seismic simulator. Acquisition of this equipment is expected to accelerate development of control devices/strategies that are implementable in full-scale structures.